Parallel Processing System for Undergraduate Instruction

The objective of this project is to set up a parallel processing facility in support of courses in concurrent processing. The core of the proposed system is a Sequent Balance 8000 computer with eight processors, eight megabytes of memory and an ethernet interface. The parallel processor will be used in several computer science courses and student design projects.